SBIR Phase II: Advanced Positron Beam Source

This Small Business Innovation Research Phase II project will develop and demonstrate
a laboratory prototype of the Advanced Positron Beam Source (APBS) that will
provide a high quality pulsed positron beam suitable for a range of analytical
instruments for materials science. The project extends the latest developments
in techniques to accumulate positrons from a radioactive source in Penning traps.
The technical objectives of the Phase I project were fully achieved. The technical
objectives of Phase II are: (1) to develop a compact, low-cost, two-stage positron
trap; (2) to develop an advanced cryogenic positron moderator system; (3) to
develop a high- performance positron buncher; (4) to refine the Phase I approach
for extracting positrons from the magnetic field of the trap; and (5) to assemble
and demonstrate the APBS system. If successful, this project will provide the
basis for commercialization of the APBS in Phase III.
A major obstacle to the commercial exploitation of positron-based surface analytical techniques
has been the lack of a suitable slow positron beam source. The APBS will fill this need
by providing a compact, low-cost, user-friendly positron beam source that can
function ultimately as a turnkey system in an industrial environment. The APBS
will have advanced performance characteristics that are not available from any
other system.